Modeling and Analysis of Multimodal Bursting in Pancreatic Beta-Cells

Bertram
9981822
The investigator uses mathematical models to study dynamical
and biophysical mechanisms for the multiple modes of bursting
observed in pancreatic Beta-cells. In pancreatic islets,
Beta-cells burst with a period of 10-30 seconds, while isolated
Beta-cells burst with periods of either 2-5 seconds or 1-2
minutes. The primary goal of this project is to answer the
following questions: (1) How does a single oscillator (the
Beta-cell) produce such a wide range of bursting behaviors? (2)
What biophysical mechanisms drive the different modes of
bursting? (3) Why does the bursting behavior differ between
isolated cells and intact islets? To address these questions the
investigator develops a family of mathematical models that
employ several slow variables. He studies how well these models
reproduce key electrophysiological and calcium imaging data from
isolated Beta-cells, cell clusters, and intact islets.
Pancreatic Beta-cells are the only cells in the human body
that secrete insulin, a hormone required by other cells to
process sugars in the blood. If Beta-cells function improperly
then late-onset diabetes occurs, the most common form of
diabetes. Insulin is secreted from Beta-cells when the cells
generate electrical impulses, so understanding the electrical
activity of Beta-cells is crucial to understanding insulin
secretion. For many years mathematical models have provided
insight into the complex electrical behavior of Beta-cells. In
the current project, the investigator develops improved
mathematical models to understand how Beta-cells produce patterns
of electrical impulses that are key to normal insulin secretion.
Only when these normal patterns are understood can abnormal
electrical activity, and abnormal insulin secretion resulting in
diabetes, be understood.